Root Carbon Costs and Water Uptake for Desert Succulents

One of the last major frontiers in understanding how plants function deals with their roots. The roots benefit a plant by obtaining water and nutrients from the soil and at the same time they impose a cost on the plant, which can most readily be appreciated by considering the carbon incorporated into their structure as well as expended by respiration for their growth and maintenance. Thus, the overall objective of the research is to determine the carbon requirements of water acquisition for the root systems of Agave deserti (an agave native to the southwest of the U.S.), Ferocactus acanthodes (a cactus sympatric with A. deserti), and Opuntia ficus-indica (a cactus that is cultivated worldwide as a vegetable, for cattle fodder, and for its fruits). The responses of the shoots of the three species to environmental conditions have been extensively studied in Dr. Nobel's laboratory over the past 15 years, providing valuable ecological information and also demonstrating that the productivity of O. ficus-indica exceeds that of most conventional agronomic crops. Moreover, the high productivities of such desert succulents are achieved at a very low cost in terms of transpired water, because all three species employ Crassulacean acid metabolism with its nocturnal stomatal opening and a greatly enhanced water-use efficiency. Here, the influences of temperature, soil water status, soil gas phase, and root age on root respiration and water- uptake ability will be determined for individual roots as well as entire root systems for A. deserti, F. acanthodes, and O. ficus-indica. The mechanisms for preventing water loss from the roots to a dry soil will be examined, a feature that is crucial for the survival of perennial plants in deserts. Performing cost/benefit analyses on the roots of these highly successful and productive species will not only provide basic information on how they respond in the natural environment but also can be used to propose new land-use scenarios for the beneficial exploitation of succulent plants under future climatic conditions.